Studies In Organized Media

The research award to Dr. Isiah Warner and Dr. Robert Strongin at Louisiana State University entitled "Studies in Organized Media" is supported by the Analytical and Surface Chemistry Program. The project goal is an improved fundamental understanding of the chemistry involved in chromatographic separations. In particular, the research will examine the molecular recognition capabilities of specifically designed media used in both liquid chromatography and capillary electrophoresis. The media to be studied include a variety of polymeric surfactants and cyclodextrins. The results of this research will be applied to the development of improved separation capabilities and new analytical methods which will impact significant environmental analysis problems.

This research project may have a significant impact on the development of new materials used in separations. The research will also result in new methods of analysis with important environmental applications. Additionally, the investigators will have a significant impact on the mentoring of minority students and providing students with experience in high quality, systematic experimental design and implementation. The research project may also have an important impact on society through the development of improved environmental methods.